Experimental High-Energy Physics

9321986 Longo This proposal is a request for support of a continuing program of research in high energy physics which includes a test of the MAX detector at Fermilab (T864); analysis and publication of data from previous experiments at Fermilab (E683), E756, E800); and a search for magnetic monopoles trapped in matter. T864 is a test for a detector that proposes to look in the very forward regions of the highest energy collisions for unusual states of the 'quark gluon condensate'. Hints of events in which all neutral states that appear as large gaps in the rapidity distributions have been reported in cosmic rays. ***